Thermal and Dynamic Properties of Density Waves in Solids

9412612 Brown This is an experimental program to investigate the properties of correlated electrons systems. The program focuses on organic and inorganic conductors with incommensurate charge-density-wave and spin-density-wave instabilities. The objective is to discover the correlation between the fascinating transport and thermodynamic behavior with the elementary microscopic excitations. The program includes samples preparations and characterizations, and experiments conducted at the home institution and national user facilities such as the National High Magnetic Field Laboratory and the National Synchrotron Light Source. The present capabilities of the laboratory will be expanded. The materials preparation facility will be improved. Higher accuracy will be sought in transport and thermodynamic experiments under high pressure and in magnetic fields. Nuclear magnetic resonance experiments under high pressure will be performed. % % % % A large number of materials have high electrical conductivity like metals but only along specific crystallographic directions. Such materials are referred to as quasi-one-dimensional. They have specific physical properties different than the conventional metals. Electrons interacting with each other and with the lattice in such restricted dimensionality, are likely to form states of matter known as density waves (charge or spin) distinct from metals but with fascinating electrical and magnetic properties. This program is designed to investigate the correlation between the underlying microscopic interactions and the macroscopic properties such as electrical conductivity. The Principal Investigator will synthesize the materials and perform experiments in the department of physics at University of California at Los Angeles as well as at two national facilities, National High Magnetic field Laboratory and the National Synchrotron Light Source. ***